Exploring Chemistry by Computer-Assisted Videodisc Technology

The institution acquired an Infowindow System to expand and improve its learning Center. This enabled the college to promote an appreciation and understanding of chemistry in the community as well as strengthen the undergraduate chemistry curriculum. The developed for the system are used for chemical technicians employed in area industry, for middle and high school students in the area, and for curriculum students at the college. This project extended the educational opportunities to chemists working in the industries, allowed middle school and high school students to come in contact with more elaborate and sophisticated applications in chemistry, and allowed more interesting and challenging laboratory experiences for the college's curriculums students. This project also resulted in the development of new video programs in chemistry, reduced health hazards, allowed new experiences for students, and permitted students with disabilities to perform some labs that otherwise they would not have been able to accomplish. The institution contributed to the project in an amount equal to the NSF funds.